Acquisition of 300 & 400 MHz NMR Consoles

With support from the Major Research Instrumentation (MRI) Acquisition Program, the Department of Chemistry at Boston University will acquire two NMR consoles, an auto sampler and six instrumentation data stations. The equipment will be used primarily by the department's organic chemists. Research will be undertaken in a number of areas including biodendrimers, asymmetric synthesis of biologically interesting natural products, asymmetric catalytic reactions, development and evaluation of compound libraries, and chiral chemistry.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most broadly used tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances and to provide information on the arrangement and connectivity of atoms in molecules. This award will provide essential analytical capabilitiies for synthetic chemists, as well as provide the highest possible access and training to new researchers. The data workstations will strengthen the the Instrumentation Software Laboratory facility where undergraduate and graduate students develop hands-on NMR expertise. It will allow Boston University to expand instrument training to additional undergraduate courses.